Native Hawaiian and Pacific Islander LSAMP Development

The Native Hawaiian and Pacific Islander LSAMP Development project, hosted by Chaminade
University with the University of Hawaii system, seeks to gather parties from 19 different
Native Hawaiian and Pacific Islander serving institutions across the Pacific, for the
purpose of developing a Louis Stokes Alliance for Minority Participation (LSAMP). The
development of a successful LSAMP Alliance will be able to reach at least 18,000 Native
Hawaiian and Pacific Islander students among the Alliance partners.
The INTELLECTUAL MERIT of the project resides in the fact that the University of Hawaii at
Manoa, a Research I institution, will provide the scientific and intellectual leadership
in the Alliance.
The BROADER IMPACTS of the proposed activities are the increase in Native Hawaiian and
Pacific Islander academic institution and student participation in STEM disciplines.